Computer Graphics Equipment to Enhance Undergraduate Curriculum

This project will set up a computer graphics laboratory using the Tektronix color graphics workstations with additional computer display terminals. This updated laboratory will be able to support instruction in animation, color, three dimensional graphics and the use of graphics standards.